Collaborative Research: Collaborative Proposal for Mathematics & Computation of Nano-Composite Flows & Properties

Zhou
DMS-0604912
Forest
DMS-0604891

This collaborative project targets mathematics and
computation for a technologically important class of materials
called polymer nano-composites (PNCs). The investigators study
two topics: the hydrodynamics of processing, and effective
property characterization (e.g., conductive and mechanical
properties). PNCs consist of ensembles of thin rods or
platelets (millions in a cubic micron, generating football fields
of surface contact with the solvent), whose orientational
distribution and superior properties relative to the matrix have
exhibited huge enhancements of materials properties in test
systems. However, success in Nature and industry with fibers,
which uniformly align the load bearing or conducting
nano-elements, has not been duplicated for films and molds,
thereby dramatically limiting the range of applications. The
difficulties are widely documented in benchmark experiments:
shear dominated, confined steady processing yields complex
dynamics and heterogeneity in the rod or platelet ensemble.
Resultant film properties are highly anisotropic, non-uniform,
and sensitive to nano-particle geometry, volume fraction, and
processing conditions. Theory, models, analysis, and numerical
algorithms are undertaken to explain these phenomena, to explore
the most perplexing observations, to map out parameter domains of
robust film flows, and to characterize the conductivity and
mechanical effective property tensors. The key object across
all projects is the orientational probability distribution
function (PDF) of the nano-particle ensemble. The PDF is
described by the Doi kinetic theory and its extension to
viscoelastic solvents, which the investigators and their
collaborators merge into homogenized averaging and
percolation-dominated effective property characterization.

The promises of nano-composite materials are profound.
Nano-scale "designer" molecules are added at very low percentages
to traditional materials, with the result of huge gains in
performance properties of the composite relative to the original
material. The nano-elements are much stronger, conduct
electricity or heat significantly better, or are impermeable to
gases and liquids that contaminate traditional materials. There
is an engineering price, however, in that the smart engineering
models and numerical codes that perform effectively for
traditional composites simply do not apply to nano-composites.
There are millions of nano-particles per cubic micron, with
football fields of new surface area per raindrop of volume.
Thus, nano-composite flows cannot be simulated with existing
simulation tools. The principal investigators are designing new
numerical simulation tools, based on new theoretical models,
which extend the traditional flow processing models and codes by
addition of new physics specific to nano-composites. The
predictions are tested in conjunction with nano-engineering
experimentalists. The goal of this effort is a platform for
design and control of nano-composite materials, with the ability
to steer the processing phase to achieve targeted property
specifications.